SBIR Phase I: Novel Light Weight Composites for Valves

*** 9761177 Shdarshan This Small Business Innovation Research Phase I project will attempt to model, design and fabricate Carbon-Carbon composite engine valves. Carbon-Carbon (C-C)composites are materials which are lightweight and exhibit high strengths at elevated temperatures. The density of C-C (1.7g/cc) versus 7.7g/cc for stainless steel and its inherent lubricity are attractive features that render this material as a candidate for engine valves. A significant proportion of engine efficiency is lost in the combustion chamber. If all parts can be redesigned with lightweight materials, the energy efficiency can be improved and the release of pollutants from combustion products decreased. Extensive testing of the valves and redesign, if necessary, of the shapes are planned for the Phase II effort. This process involves extensive dynamometer studies along with long lead times for testing. Potential applications for C-C materials are in all components of the combustion chamber that include pistons, valves, valve guides, rocker arms and connecting rods. ***